SGER: Systems for Novel Energy Conversion Technology

Decades ago, chemists developed reliable formulas to calculate
what fraction of a chemical energy source could actually be
converted into free energy. No such reliable limits exist for photovoltaic
energy extraction -- for the extraction of electrical energy from photons --
in the general case. Limits have been developed for specific types of light and specific classes
of device. In this project, the PI will use a combination of theoretical analysis
and simulation studies to explore what the upper limits of extraction might be,
as a function of the characteristics of light (particularly at lower frequencies),
for devices based on novel nanopatterned materials. It is hoped that the fundamental
knowledge developed in this way might be useful as a guide to future research in
energy management systems.